ITR: Quantum Information Processing with Ultracold Rydberg Atoms

EIA-0082913
Cote, Robin
University of Connecticut

ITR: Quantum Information Processing with Ultracold Rydberg Atoms

Ultracold Rydberg atoms have long lifetimes and interact strongly at large distances, which may make them ideal for quantum information processing. This project is investigating this possibility by studying and experimentally implementing a universal two-qubit logic gate, in which a two-atom state acquires a phase that depends on the time the atoms are interacting. The project is investigating sparsely populated optical lattices containing Rydberg atoms, which will permit the preparation of well-identified atoms in arbitrary states. The properties of atom-atom interactions, including the effect of external electric and magnetic fields will be investigated. Finally, methods of reading the information stored in Rydberg atoms will be investigated, including imaged fluorescence and selective ionization. Scaling to large numbers of qubits, as well as the effects of the optical lattice on decoherence, will be explored.